Chapman Conference on Explosive Subaqueous Volcanism; January 21-25, 2002, Dunedin, New Zealand

This grant provides partial support for a Chapman Conference that is intended to bring together volcanologists, geophysicists, and marine geoscientists with interests in the formation of clastic volcanologic successions of the modern seafloor and in ancient successions, and in the processes and significance of explosive subaqueous eruptions in seafloor settings.